PGE/LCP : Agents for Change: Robotics for Girls

This 3-year project involves a collaboration among the Institute for Research in Cognitive Science, including the GRASP robotics lab, at the University of Pennsylvania and two Clusters in the School District of Philadelphia. In response to current statistics documenting the extreme underrepresentation of girls and women in physical science and technology fields, the Agents for Change: Robotics for Girls Project undertakes to develop school-based and informal education projects and curriculum materials for middle school students designed to increase girls' participation rates, achievement, and motivation in these domains. Robotics is the organizing theme that provides a progressive sequence of hands-on learning experiences; has interesting and comprehensible applications; and integrates multiple areas of science, math, and technology in a seamless fashion.
Project activities will a) emphasize connections to role models and mentors, b) provide extensive professional development for teachers and support staff to create equitable learning environments for underrepresented students, and c) involve families and community organizations in a support system helping girls to pursue education and careers related to science, mathematics, engineering, and technology. The project will also be used as a research site to study current questions in gender and education with a large, multicultural pool of participants.